Preliminary Measurements of Vapor Growth/Evaporation of Small Ice Crystals

9417445 Baker The objective of this research is to measure the growth (by vapor diffusion) and evaporation of individual ice crystals in the laboratory using a new levitation technique, wherein the crystal is suspended by superimposed (AC & DC) electric fields. Temperature and moisture will be controlled (0 to -50C) to reproduce plausible atmospheric conditions. ***